1991 Theoretical Advanced Study Institute in Elementary Particle Physics; Boulder, Colorado; June 3-28, 1991

The 1991 Theoretical Advanced Study Institute, a summer school for advanced graduate students of theoretical elementary particle physics, will be held in June, 1991 at the University of Colorado in Boulder. The Institute will focus on various aspects of the standard model of the elementary particles and their interactions. Physics that may lie beyond the standard model will also be discussed. The school will be an improtant part of the advanced training of its attendees.